US-Hungary Joint Fund Mathematics Workshops on CombinatorialOptimization

This US-Hungary mathematics workshop, organized by Dr. Andras Recski of the Technical University, Budapest, and Dr. Leslie Trotter of Cornell University, will focus on combinatorial optimization. Participants will address topics in oriented matroids, the matroidal foundation of linear and guadratic programming, the first strongly polynomial algorithm for the minimum cost circulation problem, the matroid matching algorithm, proof of the perfect graph conjecture, the base reduction algorithm, applications in qualitative analysis of linear systems and a lower bound on the approximability of volume. Results are expected to contribute to our fundamental understanding of the theory of combinatorial optimization and its applications. Funds for the workshop are awarded through the US-Hungary Joint Fund, Budapest, in accordance with established guidelines.